Mathematical Methods for Small--Sample Biostatistical Inference

The investigator applies various mathematical methods
to extend the range of application of saddlepoint
approximation techniques and exact enumeration techniques
in statistical inference. These techniques are applied to
multi-dimensional conditional inference, achieved primarily
by developing new approximations to multivariate tail
probabilities for some component of a vector of sufficient
statistics conditional on the remaining components, and
methods for calculating these tail probabilities exactly.
Particular attention is paid to probability models
whose sufficient statistics have lattice distributions,
since standard asymptotic techniques frequently fail
in this context. These models, including logistic and
Poisson regression and contingency table models, are
very frequently used in applied biostatistical work.
Specifically, this research includes the application
of multidimensional saddlepoint approximations to
order--restricted hypotheses. It extends existing
Approximations applicable to continuous distributions to
general non-lattice distributions. It develops guidelines
for tuning approximate conditional inferential methods to
obtain higher power. Computational algorithms developed
as part of this work are publicly available.

Many current statistical techniques rely on mathematical approximations;
the accuracy of these approximations ranges from very good to inadequate.
This research involves approximations known to be almost always of high
accuracy, and applies them in some statistical contexts that are widely
used by scientists in a variety of disciplines. This research allows
investigators to draw valid conclusions from smaller data sets,
particularly in cases when important research questions are phrased in terms
of a number of quantities that must be accounted for. This situation occurs
in a wide range of areas, from finance to political science to medicine.
For example, a new medical therapy might be expected to lead to improvements,
potentially measured in a number of ways. The investigator wishes to
demonstrate that individuals receiving the new therapy at least as well
according to all of the potential measures, and better on at least one
measure, than do patients on the original therapy. Standard statistical
methods do not handle such situations in an efficient way; the current
research represents a significant improvement.